REU Site: Physics and Chemistry Research at The College of Wooster

NON-TECHNICAL DESCRIPTION:
The purpose of the Wooster REU site is to enable undergraduates and faculty to work closely together on original, publishable research involving a broad range of materials science, physics, and chemistry projects. Wooster is a liberal arts college long recognized for its mentored undergraduate research. The faculty have designed on-going research programs that are both innovative and accessible to undergraduates. Dedicated and individualized mentoring in the tools, techniques, and process of research trains and inspires young students to persist in science while contributing to publishable research. The site specifically targets beginning students, often having completed just one year of college, and often from institutions where research opportunities are scarce; it encourages the full participation of women and underrepresented groups by providing a vibrant supportive environment, and it has partnered with nearby two-year colleges to recruit students who might otherwise not major in a science or even complete college. Each student takes ownership of an individual project, conducts original research, and becomes a practicing scientist through the research project, oral and poster presentations, and written reports.

TECHNICAL DESCRIPTION:
The purpose of the Wooster REU site is to provide an environment for young students to learn the tools and techniques of scientific research while working closely with a faculty mentor on exciting and publishable research projects. The research spans a broad range of fields including condensed matter, granular materials, nanowires, spatiotemporal pattern formation, light-emitting polymers, quantum optics, nonlinear dynamics, and astrophysics. It uses experimental, computational, and theoretical techniques. Highlights include controlling spatio-temporal dynamics with noise and disorder, experimentally realizing arrays of one-way coupled oscillators, and understanding granular flows using bead piles. Research projects are intentionally designed so that even novice undergraduates can make significant scientific contributions. Past summer research has contributed to 32 scientific papers involving 54 undergraduate coauthors in journals such as Physical Review. Results have been featured twice on the cover of the American Journal of Physics and in news stories in Physical Review Focus and Nature News. Student researchers are trained in research skills including critical thinking, data analysis, and scientific writing.